Variables and Slow Transients with the Murchison Widefield Array

The Murchison Widefield Array (MWA) is a major new international observatory to study the low-frequency radio sky. Kaplan and Croft will develop new capabilities to observe and identify transient and variable radio sources. This will provide insight about explosive and flaring sources, from nearby stars to distant galaxies. These techniques will be necessary to maximize the scientific return from the next generation of radio telescopes. Kaplan and Croft will also introduce undergraduate students to the excitement of this growing field, both through focused, in-depth research projects with individual students, and through regular discussions with a larger group of students covering research methods, advances in the field, and large-scale participatory projects. They will continue working to increase representation of underrepresented minorities through public talks, school visits, workshops, star parties, and web materials, exploring creative ways to attract them to science, technology, engineering, and mathematics careers through campus-based activities and researcher visits to local schools.

The Co-PIs are members of the MWA transient collaboration. They will develop tools to recover transients from deep, low-frequency radio images out of the galactic plane obtained for Epoch of Reionization (EoR) studies. They will also conduct pointed observations in the galactic plane to search for transient and variable radio counterparts to X-ray binaries, active galactic nuclei, stellar coronal sources, and previously unknown sources. Radio light curves will be released to the astronomical community. Characterizing variable sources in the background is also an important step towards extracting the redshifted 21 cm emission from the EoR images, a key project of MWA.